Improved Reliability and Congestion Management with Closed-Loop Control Strategies for FACTS Devices

In collaboration with PSERC, the Power Systems Engineering Research Center, the Principal Investigator proposes to investigate the use of alternative control signals for FACTS devices, with the objective of improving the use of transmission facilities and optimizing the transfer capability of the high voltage grid. The project will focus on developing closed-loop dynamic system models for integrating FACTS devices into a control structure that will incorporate new control signals based on transmission congestion, transmission losses, and transmission and energy prices. This project will also create new opportunities for students to learn about one of the largest industries in the economy - an industry of significant national interest at the core of our infrastructure, which has been suffering from a steady decline in student interest and therefore course enrollment.